Magnetic Superlattices and Interfaces

We believe that the physical properties of artificially-prepared thin films are strongly affected by the synthesis and processing methods employed and therefore structural and chemical characterization must play a key role in all research performed on such films. We plan to synthesize novel magnetic thin films using state-of-the-art techniques such as sputtering and molecular-beam epitaxy, then characterize the structure and chemical composition using a wide variety of methods. Growth and characterization studies will be correlated with physical properties, especially magnetotransport and magnetization. The studies will relate to the magnetism of superlattices and interfaces with two problems - giant magneto-resistance and exchange bias - receiving particular attention.